RUI: Tunneling Measurements on B1 Superconductors

The goal of this work is to use electron tunneling and tunneling measurements to better understand the high Tc superconductivity in the new layer-perovskite compounds. Tunneling is the most direct probe into microscopic superconductivity and may provide critical information on these new materials. Of initial importance is producing unambiguous current-voltage traces to accurately determine the energy gap and the coupling strength. Subsequently the full electron-phonon spectrum would be attempted. Samples will be obtained in close collaboration with the Geballe group at Stanford University which has had early success in producing thin films of the new superconductors. Several visits each year will be made up to Stanford for sample making. Samples will also be obtained (when available) from groups at Naval Research Laboratory, Westinghouse, and TRW. The possibility of seeing non-phononic superconductivity will be addressed using a test proposed by V.Z. Kresin requiring analysis of tunneling, heat capacity and neutron scattering.